CAREER: A Pull-Based Architecture for Active Web Content Replication

The phenomenal growth of the world wide web has made it the most popular
Internet application today. Web proxy caching is an important vehicle to
mitigate web traffic explosion. Current web caching services are becoming
increasingly inefficient for two reasons. First, the continuous increase
in dynamically generated content makes an increasing fraction of web-based
media uncacheable. Second, the increasing diversity of web traffic
requires a QoS-aware caching infrastructure while the current caches are
best-effort.

In this project we shall design, implement and evaluate an active
caching/replication architecture that resolves the aforementioned major
limitations. The service augments web caches with the ability to
replicate not only static data but also data sources in a demand-driven
QoS-sensitive fashion. The cache acts as a QoS-aware retailer that
imports whatever active content is in local demand at the current time.
Demand-driven data source replication allows dynamic content to be
generated on the cache. Hence, it shifts the need for computing power from
centralized origin servers to proxies in the vicinity of end-users thereby
improving scalability and allowing cache-assisted customization of
user-perceived information access performance. By offering data source
location as a dimension to manipulate, the architecture achieves better
solutions for the web performance optimization problem that are
well-suited to diverse end-user needs.